Collaborative Research Program for I/UCRC for Lasers and Plasmas - Phase II

This is a proposal to renew the Southern Methodist University's (SMU) participation in the Lasers and Plasmas for Advanced Manufacturing center, an I/UCRC center that was created in 2002. The center was initially established as a single university center and currently has grown to a multi-university center with participation from the University of Virginia (lead), the University of Michigan, Ann Arbor and the University of Illinois. The main focus of the center's research is in laser applications for advanced manufacturing.

The SMU site has built an R&D infrastructure that consists of the most advanced research equipment and well trained teams. The research and development efforts of the Center/site are focused on projects of interest to a number of different industrial sectors including defense, automotive, energy, transportation, and others. A few examples include: laser processing of materials, laser micro-machining and welding , laser ablation and multi energy processing, laser cladding and others.

The proposed site brings diverse industrial partners, diverse equipment and software that complement the research capabilities of the other IUCRC sites of the Center. The Laser and Plasma site at SMU helps train and educate a new generation of engineers in areas of advanced manufacturing that are of interest to various/diverse industries. The integrated effort of multi-university center for laser applications provides a great benefit to the society in terms of helping US industries to be more competitive in advanced manufacturing.